Community of Soundscapes - Expanding Environmental Awareness through Capture and Sharing of Sonic Experiences

DRL- 0823670
PI: Elisa Giaccardi

ABSTRACT

In this Communicating Research to Public Audiences project, the University of Colorado at Boulder, in partnership with the University of Colorado Museum of Natural History, the City of Boulder Open Space and Mountain Parks, the CU- Boulder Office of Diversity, Equity and Community Engagement, is building on the work they have done via their NSF research award, A Meta-Design Framework for Participative Software Systems, in which they have been developing participative software systems (PPS) and applications of the software.

Community of Soundscapes will employ newly developed mobile computing and collaborative mapping technology in programs that help users gain greater insights and stake into the shared environment in which they live and visit. Sound Camera, a digital recording device outfitted with GPS mapping software, allows users to collect audio clips of their sonic experiences as they explore their cities, parks and other environments and upload them online onto a digital map through a Web 2.0 application. They can then compose, annotate, and share soundscapes of the places where the sounds were recorded. A Web site will be developed to expand the project’s reach to audiences not in the Boulder programs. Professional development training will be provided for collaborators and through the Colorado Alliance for Environmental Education.

The educational goals are to promote literacy of PSS and engage the public in personally meaningful activities that benefit environmental education (cognitive goal) and expand environmental awareness (affective goal). The project work and its evaluation processes (by Wells Resources, Inc.) are intended to advance the field of informal science education with respect to PSS and to study how these new technologies might affect shifts in the kinds of experiences various audiences prefer to have.